Gordon Research Conference on Chemistry of Supramolecules and Assemblies, August 1-5, 1999

ABSTRACT
CTS-9979243
Eric W. Kaler/Carlyle B. Storm
Gordon Research Center

The purpose of the conference is to encourage the transfer of ideas and information in the community of engineers and scientists who work in the fields of colloidal or macromolecules assemblies and supramolecular aggregates.

Topics include nanosized materials, polymer architecture and dynamics, molecular and meso-scale assembly techniques, photochemistry in organized systems, and biomolecular assemblies and their applications.

The schedule for the week is that of a traditional Gordon Conference, formal presentations by leading experts in the morning and evenings with plenty of time for discussions. The afternoons are free for informal discussion and meetings. Poster sessions are planned for attendees, including graduate students and postdoctoral fellows as well as faculty members, to present their recent work.